Engineering Reseqrch Equipment Grant: Laser-Doppler Velocimeter System

Funding is provided for the acquisition of a Laser-Doppler Velocimeter and data analysis system for the fluid dynamics laboratory in the Department of Physics and Astronomy at the University of Southern Mississippi (USM). Fluid dynamic research, will be conducted by undergraduate physics majors amd master level graduate students and published in international, refereed journals of physics. This instrumentation will allow the extension of research to projects in collaboration with faculty in engineering disciplines, and strengthen the ability of users to obtain outside support for additional research projects.